Dissertation Research: Regulation of Pollen Collection by Honey Bee Colonies

Colonies of advanced social insects consist of thousands of separate individuals each acting independently, yet the colony as a whole functions as a coherent unit. This is clearly seen in such collective activities as group food-gathering, colony thermoregulation, nest construction, and colony defense. The subunits of the colony, the individual workers, are somehow coordinated into a well-organized functional unit, but the integrative mechanisms remain largely a mystery. Scott Camazine's doctoral dissertation will focus on one example of a precisely organized colony-level process: the collection of the honey bees' protein food, pollen. The goal of the research is to understand how the collection of pollen is regulated. The approach will be to identify which castes of bees are involved in the pollen-foraging process, and to identify the flow of information among these bees concerning the colony's need for pollen. These results will elucidate how the regulation of a colony's foraging emerges from the collective behaviors and interactions of its constituent members. This research will both suggest how honey bees' pollen collection could be manipulated to enhance their value as pollinators of food and seed crops, and strengthen our understanding of how biological subunits--be they molecules, cells, or organisms--are tightly integrated into functionally organized wholes.